The Science, Mathematics, Engineering and Technology of Discovery: Unlocking the Secrets of Nubian Culture

9901979
BAILEY

The Education Development Center, Incorporated, requests $2,081,018 to create informal learning opportunities in science, mathematics, engineering and technology utilizing the study of the ancient African civilization of Nubia as context. Educational activities and resources will be developed based on the extensive ongoing archeological research on historical Nubia. The two main components of the project are a traveling exhibit with related educational materials and a website that will provide the target audience an opportunity to access extensive on-line resources and activities. The project will provide community outreach and professional development for educators in museums, community groups, schools and libraries.

The project is designed for thirty-six months' duration. In year one, a network of collaborators in the Boston area will focus on research and development; in year two, project materials will be piloted and evaluated in six cities, and on-line professional development programs will be conducted; and in year three, project materials will be disseminated directly to 60 sites and more broadly via the internet.